CAREER: Regularization methods for fluid/filament interactions in three dimensions

Cortez
0094179
The investigator develops, analyzes, and applies
computational techniques for the motion of elastic filaments
embedded in an incompressible fluid. This general situation
arises in many physical contexts, including the motion of
microorganisms, swimming of aquatic animals, fluid flow around
elastic bodies, bubble motion and more. The project encompasses
the development of numerical methods for flows corresponding to a
wide range of length scales. The methods are based on the use of
a force field along filaments made of localized but smooth terms
rather than delta distributions. Regular expressions for the
fluid and filament velocities induced by the forces are then
derived as the basis for the methods. Important properties of
this approach are that it eliminates the singularities that would
normally be present if the forces are assumed to be delta
distributions, the volume of fluid within elastic boundaries is
conserved extremely well, and high accuracy can be achieved. The
work is aimed at extending well-known numerical techniques to
three-dimensional flows driven by forces along filaments and to
the full range of length scales. Analysis of the methods is
carried out to establish and improve their stability, convergence
and accuracy properties. The applications that are pursued
include a wide variety of flagellar motions, the motion of
flexible membranes around obstacles, and others.
The motion of microorganisms in a liquid and the flow of
blood in capillaries are two examples of phenomena that can be
studied with computational methods. Computer techniques that can
accurately simulate motions of this type are very valuable
because they can be used to determine how arteries become
obstructed or how flagellated organisms perform specific
functions in the human body and the effects of defects in this
mechanism. From a mathematical point of view, these computer
simulations are not ready for scientists to use; there is a need
to improve the accuracy with which the underlying equations are
being solved and increase the reliability of the methods. This
project is aimed at developing computational methods for fluid
flows interacting with elastic structures. The goal is to develop
high-accuracy methods, improve on their mathematical properties,
and apply them to problems from biological sciences.